SGER: El Nino Rapid Response Study Off Baja California

Hendershott 9800163 A study of the physical and biological response of the coastal region off Baja California, Mexico during the 1997 El Nino event will be initiated. The proposed measurements would supplement a Mexican research program called IMECOCAL that is scheduled to occupy a set of transects of the original California Cooperative Fisheries (CALCOFI) grid starting in January 1998. An initial cruise would take place in November and the number of stations and lines occupied during the January cruise would be increased. In addition to these standard hydrographic surveys, a pair of pressure gauges will be deployed at Guadaloupe Island (29 N) and at a coastal location at Punta Baja (30 N) to monitor the sea surface pressure gradient normal to the coast, and hence the mean flow of the California Current throughout the current El Nino and afterwards.